Computer Science, Engineering & Mathematics Scholarship Program

The project provides a total of 30 scholarships per year and a specialized support program for computer science, engineering, and mathematics majors at the associate degree level. The objective of the project is to increase the enrollment, retention, and success of academically talented, financially needy students, particularly Hispanics and females, through scholarships, mentoring, and support services that promote full-time enrollment and the attainment of associate degrees in CSEM disciplines. The project provides academic and mentoring support to enable a minimum of 70% of scholarship recipients to maintain or exceed a 2.5 grade point average and persist until associate degree attainment or transfer to a CSEM baccalaureate program. The project also provides transfer assistance to all students who complete program requirements and desire enrollment in a four-year institution, and job placement assistance. These efforts are complemented by recruitment activities at a mall-based storefront, three-pronged mentoring (education, industry and peer), tutoring (including a "peer tutoring corps"), and a transfer guidebook. Several industry groups also assist in mentoring and optional job shadowing and internships. Scholarship recipients have education, industry, and peer mentors and they are encouraged to participate in meetings and activities of professional societies.